CONFERENCE SUPPORT:THE 1993 RESEARCH CONFERENCE ON NONLINEAROPTICS AND LASERS AUGUST 2-6, 1993, TO BE HELD AT BREWSTER ACADEMY, WOLFEBORO, NEW HAMPSHIRE

9311803 Anderson This proposal requests a grant in support of the 19923 Gordon Research Conference on Nonlinear Optics and Lasers to be held at Brewster Academy, Wolfeboro, New Hampshire, August 2-6, l993. As in previous years, the purpose of this conference is to provide an informal forum for the presentation and discussion of new work on selected topics in nonlinear optics, quantum electronic, and lasers, and their applications to physics and chemistry. An informal atmosphere with a strong emphasis on discussion is intended to encourage the exchange of ideas in a manner not possible at regular meetings of professional societies. Particular effort is made to provide an opportunity for graduate student and postdocs to interact in this informal atmosphere with foremost experts in the field. A total attendance of approximately 135 scientist, including students and postdocs, from universities and industry is anticipated. It is proposed that the estimated total expenses for the conference of $42,000 be shared by the National Science Foundation, the Office of Naval Research, the Air Force Office of Scientific Research, the Army Research Office, and the Chairman's Special Fund of the Gordon Research Conferences. The National Science Foundation grant will be used to provide partial support for invited speakers and selected junior faculty postdoctorals and students who, because of limitations of their own source of funding, require financial assistance to attend the conference. No honoraria will be paid. ***